Engineering Research Equipment Grant: Closed Loop Servo- Hydraulic Testing System

A closed loop servo-controlled hydraulic testing system is purchased to provide the capability for any institution to perform dynamic and static tests to assess the deformation and fracture behavior of materials. The system will improve the quality of varying ongoing research programs on fracture of materials and will broaden the scope of experimental research in the field of engineering mechanics carried out by this institution.